Mechanical Sciences: Workshop on the Focus and Direction forSolid Mechanics Research

Partial support will be provided for a workshop that is being held to define a focus and direction for the solid mechanics research community, but more specifically for the grantees of the NSF's Solid Mechanics Program to enhance the quality and impact of the research supported. The solid mechanics research community has not evolved a cohesive central management, so that most researchers work on single investigator projects in a relatively unstructured environment, with little peer guidance for their activities. It is expected that this workshop will foster a more cohesive operation, using as a nucleus the grantees of the Solid Mechanics Program. The workshop proceedings will be published shortly after the conclusion of the meeting. It will be an imaginative and realistic document of use to the entire solid mechanics research community and to funding agencies.